Investigation of Subtidal and Seasonal Circulation Patterns in Delaware Bay Using Remotely Sensed Data

It is proposed to integrate satellite imagery of sea surface temperature and reflectance (turbidity) with a mixed layer model and a three-dimensional circulation model to infer dynamical processes of the subtidal circulation in Delaware Bay. Then, the output of the three-dimensional model will be validated against in- situ data.